Very Large Scale Integrated Design and Implementation of an Image Segmentation Algorithm

Image segmentation is a crucial step in image analysis and is required before any high-level symbolic manipulation can be performed on the image. The overall goal of this project is to carry out the VLSI design and implementation of an image segmentation algorithm useful for analyzing industrial, biomedical and military images. A gradient relaxation chip was fabricated and tested in Phase I of this project. Also a board-level prototype was constructed to implement real-time image segmentation using this chip. In Phase II of the project the segmentation algorithm is being refined and evaluated. Then the entire segmentation system will then be fabricated in VLSI. The system will be evaluated using industrial, biomedical, and military images. This grant is part of a projected three phase program sponsored by NSF under the Small Business Innovation Research program. In this second phase effort, the researchers are building a VLSI chip for the purpose of real-time image segmentation. Such segmentation is the first step in allowing a robot to "understand" an image so as to facilitate automated assembly.